Integrating Quality Talk Professional Development to Enhance Professional Vision and Leadership for STEM Teachers in High-Need Schools

This project expands and augments a currently-funded NSF Noyce Track II teacher recruitment and retention grant with Quality Talk (QT), an innovative, scalable teacher-facilitated discourse model. It is hypothesized that the QT model will enhance pre- and in-service secondary teachers' development of professional vision and leadership skills necessary for 21st century STEM education. Over the course of four years, the work will address critical needs in physics and chemistry education in 10th through 12th grade classrooms in five of Georgia's high-need school districts by strengthening the capacity of participating teachers to design and implement lessons that support effective dialogic interactions. As a result of such interactions, students' scientific literacy will be enhanced, including their ability to participate in content-rich discourse (i.e., QT) through effective disciplinary critical-analytic thinking and epistemic cognition. The contributions of this project, beyond the tangible benefits for teacher and student participants, include the development, refinement, and dissemination of an effective QT intervention and professional developmental framework that the entire science education community can use to promote scientific literacy and understanding.

The project goals are being achieved through a series of three studies employing complementary methods and data sources, and a focus upon dissemination of the model in the final project year. The first two years of the project focus on developing and refining the curricular and intervention efficacy materials using design-based research methods. In Year 3, the project engages in a quasi-experimental study of the refined QT model, followed by further refinements before disseminating the materials both within Georgia and throughout the national science education community in Year 4. Quantitative measures of teacher and student discourse and knowledge, as well as video-coding and qualitative investigations of intervention efficacy, are being analyzed using multiple methods. In collaboration with, but independent from project staff and stakeholders, the participatory and responsive evaluation utilizes a variety of qualitative and quantitative methods to conduct formative and summative evaluation.

Over the course of four years, the project will involve the participation of approximately 32 teachers in Georgia whose students include substantive percentages from populations underrepresented in the STEM fields. In addition to advancing their own students' scientific literacy, these participating teachers receive professional development on how to train other teachers, outside of the project, in using QT to promote scientific literacy. Further, the project will conduct a QT Summit for educational stakeholders and non-participant teachers to disseminate the intervention and professional development model. Finally, the project team will disseminate the findings widely to applied and scholarly communities through a website with materials and PD information (http://www.qualitytalk.org), professional journals, conferences, and NSF's DRK-12 Resource Network. This project, with its focus on teacher leadership and the pedagogical content knowledge necessary to use discourse to promote student science literacy, significantly advances the nation's goals of producing critical consumers and producers of scientific knowledge.